Improving the representation of eddy-topography interactions in ocean models

Mesoscale eddies regulate the density structure of the ocean and mediate the transport of heat, carbon, and nutrients, with outsized influence in high latitudes and near continental margins. This project investigates eddy dynamics near the sloping ocean bottom or where bottom topography is rough because the size, shape, and vertical structure of eddies can be altered here due to interactions with the topography. The goal is to improve representation of eddies and associated energy fluxes near the ocean bottom to reduce biases in circulation and to balance energy budgets in ocean models. This improvement will help future projections of heat and carbon uptake by the ocean, particularly in regions where observations are sparse such as the Southern Ocean. In addition, the project will inform the design of future observing systems and will aid work force development by providing support for early career scientists.

The goal of this project is to improve ocean models by including the effects of topography on mesoscale eddies. The plan is to develop new topography-aware, depth-dependent energy closure schemes within an energetically consistent backscatter framework. The emphasis will be on how bottom roughness and slopes modulate mesoscale eddy vertical structure and how that structure should modify backscatter coefficients and associated fluxes in eddy-permitting ocean models. The work will use a clear model hierarchy for theory development and validation: (1) quasigeostrophic (QG) theory and high-vertical-resolution QG turbulence simulations to derive unified, regime-aware predictions across smooth slopes, roughness, and mixed multiscale bathymetry; (2) validation in adiabatic primitive-equation process models in a configuration with controllable roughness and slope geometry; (3) diabatic, sea-ice-coupled Southern Ocean process experiments to test impacts on heat transport and ice–ocean interactions; and (4) time-permitting, implementation and assessment in the Geophysical Fluid Dynamics Laboratory’s global ocean–sea ice configuration to ensure immediate usability by the broader community.